Constraining Cosmological Parameters with Galaxy Cluster Phase Spaces

In 1914, Einstein brought forth his foundations for General
Relativity (GR) to explain gravity using the geometry of space and
time. Einstein's GR ushered in the beginning of a new scientific
paradigm shift for the science of the origin and evolution of the
universe ("Cosmology"). This is now a golden age, similar to the
centuries around Plato, Copernicus and Newton, and we are privileged
to be witnesses to this paradigm shift in real-time. All scientific
paradigms go through a long period of intense testing, as the data and
the scientific methods push the theory to its limits. The Universe is
so vast that there are physical scales on which GR should apply, but
which have been difficult to test. Consider clusters of galaxies,
which are the largest gravitationally bound objects in the Universe.
Clusters entrap galaxies on scales of tens of millions of light years
(i.e, 100 times larger than our own Milky Way). Does Einstein's GR
still apply over such large distances in space-time?

The escape velocity from a galaxy cluster is a combination of the
local Newtonian gravitational potential and the acceleration of the
expansion of the Universe. Weak lensing mass profiles of clusters can
be used to predict the escape velocity profile from the gravitational
Newtonian component and cosmology. This joint analysis provides a new
direct avenue to constrain the dynamics of the expanding Universe and
can simultaneously test GR and our standard Lambda CDM cosmological
paradigm, time evolving dark energy, Chameleon gravity, and more. We
will use the Michigan Magellan Fiber System (M2FS) to collect 100-200
galaxy cluster member spectra for escape velocities of clusters within
the Dark Energy Survey (DES) footprint. We will directly compare the
weak-lensing predicted escape velocity profiles to the observed
profiles from the M2FS data in a likelihood analysis. Given a Hubble
constant prior, this probe can achieve similar or better precision on
the dark energy equation of state parameters compared to supernovae or
the CMB.